ROW-Visualization of Scientific Data Sets Using Object- Oriented Methods

9413526 Wenner This is a Career Advancement Award to Dr. Patricia Wenner at Bucknell University. Dr. Wenner, a member of the Computer Science Department at Bucknell, will be at the San Diego Supercomputer for a year's sabbatical working with visualization scientists at the center. Her project centers on developing a research plan which will explore the feasibility of extending visualization software with the use of object-oriented methods. Work in visualization systems will be extensively examined, to more thoroughly understand the approach in the current commercial and research systems. The applicability of object-oriented data based management systems will be studied. Her work will also be oriented toward the massive amounts of data needed to describe the earth's climate.